DISSERTATION RESEARCH: History and Consequences of Self-incompatibility in Solanaceae

Different systems of mating can have profound consequences for the
adaptive potential of species. Despite the demonstrable genetic advantages
of outcrossing, a significant proportion of plant species self-fertilize
occasionally or habitually. This proposal aims to accurately reconstruct
the history of mating system variation in Solanaceae, an economically
important plant family. The proposal identifies a new approach to
reconstruction of mating system ancestry, using a common genetic system
involved prevention of self-fertilization. This genetic system, called
self-incompatibility, prevents a hermaphrodite plants own pollen from
fertilizing its ovules.
This proposal unites a framework of ideas from molecular genetics,
theoretical population biology, and statistical methods to develop a tests
of hypotheses of a) irreversibility of mating system characters and b) the
effects of a widespread mating system character on species diversification
rates. Thus, the ultimate goal of this study is the understanding of how
mating systems affect the multiplication and survival of plant species,
one of the most diverse and important groups of terrestrial organisms.